Energy-Dispersive X-ray Fluorescence Spectrometry: Undergraduate Applications in Geology and Geochemistry

A "hands-on" understanding of the techniques and applications of whole-rock geochemical analysis is an essential part of a student's undergraduate preparation in Geology. The Department of Geology at Trinity University will integrate an energy-dispersive x-ray fluorescence spectrometer system (ED-XRF) into its undergraduate curriculum. All students whose eventual careers might require the application of geochemical principles will be exposed to the multiple uses of this technique. The instrument will be used as a tool in courses and research, with an emphasis on its use in solving geologic problems including the origin of igneous, metamorphic, and sedimentary rocks and ore deposits. Development of the program will be achieved through the acquisition of an ED-XRF which has capability to produce quantitative, multi-element analyses of silicate rocks.